Block Travel: Tenth Triennial World Congress of the Internationial Federation of Automatic Control, Munich, FRG, July 26-31,1987

The International Federation of Automatic Control will hold its 10th Triennial World Congress in Munich, FRG in July 1987. This conference brings together a large and distinguished group of researchers and practitioners in the field of automatic control. The various sessions in the conference cover a wide range of theoretical and applied subjects including robotics adaptive control, manufacturing systems, computer aided design and mathematical systems theory. The conference generally attracts over 1000 participants and offers U.S. attendees a unique opportunity to interact with foreign researchers. This award will provide funds for Block Travel of U.S. participants to the 10th Triennial IFAC World Congress. This meeting brings together a large and distinguished group of researchers and practitioners in the field of automatic control.